Acquisition of Guideblock and Temperature-Pressure Control Systems for A Multi-Anvil Apparatus

This award provides funds to acquire an automated temperature-pressure control system and an anvil guideblock assembly that will be incorporated into a multi-anvil high pressure apparatus operated in the Center for Lithospheric Studies at the University of Texas-Dallas. The high-pressure-temperature (up to 250 kilobars and 2000C) equipment will be used for phase equilibrium studies emphasizing a systematic study of melting relationships in model systems that approximate the Earth's mantle in composition.